Reclaiming & Upgrading Research Laboratories in Crawford Hall, Bowie State University

Bowie State University, a Historically Black University in Maryland, is the recipient of ARI funds for the renovation of research and training laboratories in Crawford Hall. Constructed in 1968, the building is home to the science departments on campus, including Computer Science that claimed research space designated for Biology. With the construction of a new facility specifically designed for the needs of Computer Science, the current space assigned will be reclaimed by the Biology Department. Renovations entailing the installation of laboratory benches, cabinets, an autoclave, additional electrical outlets and water deionizers are necessary to make the space functional for research purposes. In addition, two rooms will be renovated as support facilities, a darkroom and a sterilizer room. This project directly impacts ongoing research programs in molecular and cellular biology. Designated research space will be available for some faculty who are presently conducting research off campus. Renovated facilities will assist the University in its endeavor to establish a sound research program in biology, biochemistry, and structural biology that serves as the core of the biological science program. Recognized as a NSF -Model Institution for Excellence,` the project will enhance the University's efforts in expanding research opportunities for minority students and will encourage them to pursue advanced studies in science.